Presidential Young Investigator (PYI) Award: Studies of Low Surface Brightness Galaxies

Dr. Schneider will use this Presidential Young Investigator Award to support an investigation of optically underluminous galaxies. The object is to determine their (potentially very large contribution to the "missing mass" problem and to determine why star formation has been so inefficient in them.